Workshop on Mathematical Hydrodynamics at the Steklov Institute; Moscow, Russia; June 12-17, 2006

Abstract DMS 0543432

C E Wayne, Boston University

Workshop on Mathematical Hydrodynamics at the Steklov Institute

This is a proposal for support for US-based researchers to attend the Workshop on Mathe-
matical Hydrodynamics at the Steklov Institute that is being planned for the week of June
12 - 17, 2006.

Intellectual merit of the proposed activity: The subject matter of the workshop is
mathematical aspects of the theory of hydrodynamics, which includes the study of Euler's
equations and the Navier - Stokes equations of fluid dynamics, as well as the equations for
the dynamics of waves on free surfaces. In the past several years, there has been progress on
a number of the most basic and difficult questions in this field. These advances further the
mathematical understanding of the fundamental, nonlinear, partial differential equations
that describe these systems and also shed light on the basic physical processes they model.

Broader impact of the proposed activity: The purpose of this meeting is to present
the state of the art to the diverse international community of researchers who have an
interest in these topics, and to discuss the perspectives for the next advances in the field.
This should aid in the dissemination of the current state of the knowledge in this area and
also highlight avenues ripe for further progress. Furthermore, the funds from this grant
will allow both junior and underfunded US researchers to participate in the event who
might not otherwise have the opportunity to do so.